CSEDI: Experimental Constraints on Dynamic Processes in Earth's Core

The transport properties of iron alloys are central to the understanding of
dynamic processes in the Earth's core, including convective motions in the
outer core (which drive the geodynamo) and solid-state deformation in the
inner core, which may be responsible for the observed seismic anisotropy.
To better understand these processes the PIs propose to conduct
experimental studies of diffusional transport in iron at high pressure (up
to 27 GPa). Rates of diffusion of several chemical species (Fe, S, O, and
Os) will be measured in both liquid iron and in high-pressure solid phases
(fcc and hcp). The experiments will extend to significantly higher
pressures than have been examined previously and will provide a more secure
basis for extrapolating diffusion rates and diffusion-related properties to
the conditions of the core. The results will lead to a better
understanding of inner core rheology and mechanisms for producing
anisotropic textures; the viscosity and role of compositional convection in
the outer core; and the spatial distribution of osmium isotopes and other
chemical species within the core.